2002 Chemistry at Interfaces Gordon Conference (7-12 July, 2002, Connecticut College, New London, CT)

CTS-0212339
Prieve, Dennis C.
Gordon Research Conference

The purpose of this grant is for partial support of the Gordon Research Conference on
Chemistry at Interfaces to be held 7-12 July 2002 at Connecticut College in New London,
Connecticut. The funds requested will be used to encourage wider participation in the
conference by young chemical engineering faculty and promising graduate students by
providing partial support for travel expenses and conference fees.

The program for the conference has four sub-themes: 1) Biomolecules at Interfaces, 2)
Self-Assembly at Interfaces, 3) Consequences of Colloid Forces and 4) Charge Effects in
Nonaqueous Media. 22 speakers and 20 discussion leaders have been invited and agreed to participate in the oral program. In addition to the invited talks, posters are encouraged
to be submitted from all conference participants, especially from those not invited to
speak. A 30-minute time slot is included in the morning program each day for oral
overviews. The Vice-Chair will select between 3 and 6 posters to be summarized orally
each day in this time slot. Full examination of all posters will be conducted in each
afternoon's poster session. A final report will be prepared and submitted to the National Science Foundation.